Understanding the Granular Creeping Behavior during the Densification Processing of Ceramic Electrolytes in All-solid-state Batteries

NON-TECHNICAL ABSTRACT

Modern society increasingly depends on reliable and safe batteries for electric vehicles, portable electronics, and renewable energy storage. Solid-state batteries offer the promise of higher energy density and improved safety by replacing flammable liquid electrolytes with solid ceramic materials. However, manufacturing these ceramic components consistently remains a major challenge because tiny powder particles do not always pack together uniformly during fabrication, creating internal defects that reduce battery performance and reliability. This project is investigating how microscopic ceramic particles slowly rearrange during manufacturing, a process referred to as granular creeping behavior, and how this process influences the quality of solid-state battery components. The research combines advanced mechanical testing, three-dimensional X-ray imaging at national user facilities, and computer simulations to determine how manufacturing conditions control particle packing, defect formation, and final battery performance. This project advances the NSF mission by expanding fundamental knowledge of ceramic materials processing while supporting the nation’s long-term energy security and advanced manufacturing capabilities. The project also develops educational activities that connect research with workforce development through hands-on programs for K-12 students, community college students, and practicing engineers. These activities broaden participation in science and engineering and help prepare a future workforce for the growing energy storage industry.

TECHNICAL ABSTRACT

This project is establishing a mechanistic framework for understanding granular creeping behavior during the consolidation of ceramic solid electrolytes for solid-state batteries. The central hypothesis is that time-dependent particle rearrangement is governed by the interaction between the intrinsic micromechanical properties of ceramic particles and externally imposed consolidation rates, thereby controlling
microstructural evolution and ultimately the mechanical and electrochemical performance of solid electrolyte separators. The research integrates particle-scale experiments, operando characterization, and computational modeling across three coordinated tasks. The first task quantifies the rate-dependent elastic, viscoplastic, fracture, and interparticle contact behavior of lithium phosphorus sulfur chloride particles using nanoindentation and micro-compression experiments. These measurements provide constitutive parameters for discrete element modeling of particle rearrangement during powder consolidation. The second task investigates how granular creeping develops during cold pressing and slurry casting using operando and ex situ synchrotron X-ray tomography, enabling direct observation of particle rearrangement, pore evolution, and consolidation dynamics under controlled processing conditions. The third task correlates fabrication-induced microstructural evolution with separator-scale properties through mechanical characterization, ionic conductivity measurements, and critical current density testing. The project advances the fundamental science of ceramic powder consolidation by connecting particle mechanics, processing conditions, microstructural evolution, and functional performance within a unified predictive framework. The resulting knowledge is expected to benefit ceramic processing, advanced manufacturing, and electrochemical energy storage while providing research training and educational opportunities that broaden participation in materials science and engineering.